Identification of Parameters in Noncausal 1-D Models

This research is concerned with the problem of estimating parameters in systems which have noncausal impulse responses. Such systems arise in a number of signal processing applications such as seismic processing. The approach is to derive state variable models for one-dimensional noncausal systems and to develop maximum-likelihood solutions to the problem of estimating the unknown parameters in these models.